Biogeochemistry Scholarship Program: An NSF Sponsored REU Site for Interdisciplinary Research in Biogeochemistry

The PI requests funding to initiate a summer internship program at Old Dominion University that will focus on biogeochemistry and will be specifically geared to encourage participation from minorities. Collaborative biogeochemistry projects will include (1) trace element chemistry of natural water and (2) biogeochemical processes in marine systems. The program will support 10 students who will be recruited from four-year colleges, including several HBCUs. The program will include weekly seminars on scientific and ethical topics. This proposal is supported by the NSF Ethics and Values (EVS) program. The proposal also contains significant cost sharing from the University.